CDI-Type II: Collaborative Research: Computational Models for Evaluating Long Term CO2 Storage in Saline Aquifers

Collaborative Research: Computational Models for Evaluating Long Term
CO2 Storage in Saline Aquifers

The key goal of this project is to produce a prototypical
computational system to accurately predict the fate of injected CO2
in conditions governed by multiphase flow, rock mechanics,
multicomponent transport, thermodynamic phase behavior, chemical
reactions within both the fluid and the rock, and the coupling of all
these phenomena over multiple time and spatial scales.
To tackle this grand challenge effort, a multidisciplinary research
team has been assembled of senior researchers M. F. Wheeler,
T. Arbogast, and M. Delshad of the Center for Subsurface Modeling
and I. Duncan from the Bureau of Economic Geology at The
University of Texas at Austin, as well as M. Parashar of
the Applied Software Systems Laboratory at Rutgers University. This
group has expertise in (1) applied mathematics and computational
science that includes multiscale and multiphysics algorithms, solvers,
uncertainty, and optimization (2) computer science
that includes dynamic adaptivity, model/code couplings, and data
management and transport (3) compositional modeling and
CO2 injection processes and (4) CO2 demonstration sites.
In each of the third and fourth years of the project, we will
host a two-day workshop for high school teachers, advanced high school
students, and undergraduate students with an interest in high school
teaching. We will provide training in the use of a sophisticated groundwater
simulator, to be used as a tool to engage and pique the interest of
high schoolers, perhaps leading some to careers in mathematics, the
sciences, and interdisciplinary work. In addition, two postdoctoral
students and roughly two graduate students will be supported
throughout the project.

Geologic sequestration is a proven means of permanent CO2 greenhouse gas
storage, but it is difficult to design and manage such efforts. Predictive
computational simulation may be the only means to account for the lack of
complete characterization of the subsurface environment, the multiple scales of
the various interacting processes, the large areal extent of saline aquifers,
and the need for long time predictions. This proposal will investigate high
fidelity multiscale and multiphysics algorithms necessary for simulation of
multiphase flow and transport coupled with geochemical reactions and related
mineralogy, and geomechanical deformation in porous media to predict changes in
rock properties during sequestration. The work will result in a prototypical
computational framework with advanced numerical algorithms and underlying
technology for research in CO2 applications, which has been validated and
verified against field-scale experimental tests. The multidisciplinary
research team has expertise in (1) applied mathematics and computational
science, (2) computer science and engineering, (3) compositional modeling and
CO2 injection processes, and (4) CO2 demonstration sites.
In each of the third and fourth years of the project, we will
host a two-day workshop for high school teachers, advanced high school
students, and undergraduate students with an interest in high school
teaching. We will provide training in the use of a sophisticated groundwater
simulator, to be used as a tool to engage and pique the interest of
high schoolers, perhaps leading some to careers in mathematics, the
sciences, and interdisciplinary work. In addition, two postdoctoral
students and roughly two graduate students will be supported
throughout the project.